Chronology and Evolution of Geomorphic Surfaces Along the Upper Mojave River, San Bernardino County, California

9319076 Sadler This award is made to the Chairperson, Department of Earth Sciences, University of California, Riverside, California, to support the graduate work of Tanya N. Williamson, while Ms. Williamson is a student in good standing at the University of California, Riverside. The funds are to be managed by the P.I., and NSF intends to support the student for up to three years, provided the Chairperson confirms satisfactory progress toward a degree in annual reports to NSF.